Workshop on: "Molecular Biology of Mitochondrial Transport System; Ostuni, Italy, September 30 - October 3, 1992.

The vast majority of eukaryotic cells contain many mitochondria. In this organelle, the oxidation of small molecules generates cellular ATP, thus providing most of the available energy for the cell. A unique feature of mitochondria and related intracellular organelles is that they are composed of two independent yet interacting membrane systems. Embedded in both of these membranes are a variety of channel and carrier molecules that are responsible for the monumental biochemical tasks necessitated by this structure; the transport of highly charged molecules into and out of the mitochondria. Many of the molecules responsible for these transport processes have been identified and characterized in recent months. Many of the recent advances in the field have been made by investigators applying disparate technologies and methodologies. This workshop on "Molecular Biology of Mitochondrial Transport System" will bring together scientists examining these systems by different approaches to begin to identify structural similarities and functionally important interactions. Although many of the individual players are known, the nature of potential functional interactions and conserved structural motifs have yet to be thoroughly explored. It is both important and timely to bring together a multidisciplinary group of investigators examining mitochondrial transport systems by different approaches but with the same overall goal.